Entropic and Disorder Effects in Soft Biomaterials

9807156 Nelson This is a theoretical grant funded jointly by the Divisions of Materials Research, Physics and Molecular and Cellular Biology. The focus is on the physics of soft biomaterials. The systems studied will include lipid bilayer membranes, DNA, and complexes of DNA with other materials. The work is basic research aimed at characterizing these key achitectural and functional elements of living cells and understanding the mechanisms governing their behavior. The interest of the work is not only to understand their operation in vivo, but also to illuminate principles which could help in the design of simple artifiical analogs, ultimately for medical and even industrial applications. This project will use the methods of theoretical physics to study the interplay between membrane conformation, entropic effects, adhesion of particles to membranes, and structures of cytosol; the dynamics of stiff biopolymers such as DNA and actin, the role of torsional stiffness in their dynamics, and in particular the transport of torsional stress down DNA in response to transcription; the interactions of highly-charged polymers (polyelectrolytes), such as DNA; and, the sharp switching between positionally ordered and disordered tracts of chromatin fiber, and its hypothesized role in gene regulation. Particular emphasis will be placed on distinguishing the effects of thermal fluctuations (entropy) from those of frozen disorder (e.g. sequence information) in soft biomaterials. Sometimes these effects are similar, for example in equilibrium DNA stretching, while in other cases they can be wildly different. Much of this research will continue ongoing direct collaborations with experimentalists. Many different techniques will be needed, from standard continuum mechanics methods (elasticity theory, fluid mechanics) to modern statistical physics. Numerical modeling will be called upon as needed, with primary emphsis given to simple analytical results. %%% This i s a theoretical grant funded jointly by the Divisions of Materials Research, Physics and Molecular and Cellular Biology. The focus is on the physics of soft biomaterials. The systems studied will include lipid bilayer membranes, DNA, and complexes of DNA with other materials. The work is basic research aimed at characterizing these key achitectural and functional elements of living cells and understanding the mechanisms governing their behavior. The interest of the work is not only to understand their operation in vivo, but also to illuminate principles which could help in the design of simple artifiical analogs, ultimately for medical and even industrial applications. ***